Studies in K-theory and Arithmetic

The investigator studies various K-theories of algebraic varieties
and their relation to arithmetic cohomologies. In the case of classical
algebraic K-theory this relation has found numerous applications in
number theory, for example, to special values of L-functions of motives.
In the last couple of year the investigator has introduced log-K-theory
groups of log-schemes (log-scheme is a generalization of a toric variety)
and studied their basic properties. She proposes to continue studying
these groups as well as regulator maps into log-crystalline and log-etale
cohomologies. She believes that this will have important arithmetic
applications.

This proposal deals with number theory and algebraic geometry.
Number theory is the study of the properties of the whole numbers
and is the oldest branch of mathematics. Algebraic geometry studies
geometric figures that can be defined by the simplest of equations,
namely polynomials. The questions and phenomena which arise from
combining these two subjects serve as driving forces in much of
contemporary mathematics research. Moreover, the combination of
these subjects has contributed many applications in such diverse
areas as codes and data transmission, robotics, and theoretical
computer science.